Zero Knowledge Proofs and Their Complexity

9207024 Peralta This project studies complexity of interactive proofs and involves substantial work in computational number theory and combinatorics. This supplement will upgrade the workstation used in the project, removing memory limitations that limit exploration of new research ideas. ***